Asset Prices, Investor Behavior, and the Macroeconomy

This research continues the principal investigator's time series analysis of financial and macroeconomic data, the purpose of which is to evaluate simple theories of financial market behavior and the relation of financial markets to the macroeconomy. Important new understandings of the behavior of financial markets already have been achieved through improved models, new techniques of improving the fit of models, and through the use of new econometric tools. The proposed research addresses two distinct areas: (l) Time series analysis of financial markets and the market for private homes. (2) Survey analysis of individual and institutional investors. In the first, time series modelling of cointegrated vector autoregressive models is used to explore further the behavior of financial markets and their relation to the macroeconomy. In the second, questionaire surveys are used to learn about the fundamental patterns of human behavior in financial markets. The investigator's research differs from most other work in this field in that he is attempting to develop behavioral theories that do not rely on the conventional economic assumption that all investors are rational. The lines of inquiry are complex, but there is a good chance for significant scientific as well as practical payoff.